Acquisition of a Field Emission Scanning Electron Microscope

A field emission scanning electron microscope will be acquired to allow direct imaging of individual macromolecules. The molecular imaging technology will be applied to lung and lens tissues as well as to individual cells, subcellular components, and the extracellular matrix. Receptor and channel protein molecules and polymerizable lipid films will be directly imaged and their structures compared with images obtained by scanning tunnelling microscopy and x-ray diffraction.